A Confocal Microscope for the Basic Science Facility

This is an application for two items that will allow state-of-the-art data analysis and image processing: a Leica/Leitz TCS 4D-UV scanning laser confocal microscope, and a Power Macintosh-based workstation with image processing and image analysis software. The new microscope will be housed in the Basic Science Microscope Facility. It will serve investigators from more than five basic research departments at the Johns Hopkins Medical School. Our six major users require confocal microscopy for the following purposes: high resolution colocalization of fluorescent labels in fixed cells and tissues; clear differentiation of signals in cells stained with multiple labels, simultaneous recording of multiple fluorochromes for accurate registration and efficient processing; excitation at both UV and visible wavelengths; and 3D views of complex structures in cells, embryos and neural tissues. The Leica/Leitz TCS 4D-UV microscope best fits these needs. The Leica has (i) an upright microscope body equipped with the best optics for DIC and confocal fluorescence microscopy, (ii) multiple wavelength excitation provided by an Ar/Kr laser, and UV excitation provided by an argon ion laser, (iii) simultaneous collection and display of DIC and 3 fluorescence images, (iv) the most accurate collection of either XZ or XY images with resolution in the Z-axis documented at 360 nm, and (v) a convenient and efficient multi-user environment. Images will be stored on hard drives or magneto-optical drives accessible to all laboratories in the medical school via our EtherNet network. Volume rendering, 3D reconstruction, and other image analyses will be performed on a separate Power Macintosh-based workstation located in the same Microscope Facility, using software such as VoxelView and Adobe Photoshop. The Johns Hopkins Medical School currently has one old confocal microscope, which does not have these features. The Leica confocal microscope described in this proposal will give all of our use rs access to modern image and data analysis, and will be time-efficient, dependable, and easy to use.